Particulate Removal from Electronic Circuits by High-Intensity Acoustic Waves

High decibel acoustic waves will be used to remove micron- and submicron-sized particulates contaminants from the surface of high density integrated circuits. Efficient use of the acoustic energy provides the removal force necessary to overcome the particle/surface adhesion. This innovative cleaning technique has the potential to increase substantially the production yields of current chip manufacturing processes and to advance the miniaturization of future circuit designs. The experimental portion of the investigation includes: morphological characterization of the contaminants prior to and after cleansing, characterization of the acoustic field during the procedure, and a parametric study of the removal efficiency as a function of the acoustic waver form (e.g., random, gated-random, tone burst) and intensity. The research also involves a theoretical investigation of the interaction of acoustic waves with the surface of the IC and of relative adhesive and removal forces under various configurations and acoustic fields.